SGER-Exploring the use of Quantum Dots to Detect the Physiology of Intact Phytoplankton Cells by Flow Cytometry

Abstract - Orcutt

The PIs will to apply the emerging technology of Qdots in biological oceanography, particularly in studying phytoplankton. Qdots have unique fluorescence properties with tremendous potential for probing cell structure and function. They are inorganic fluorophores that can be conjugated to biological materials such as antibodies or DNA for use in cell detection. Molecular conjugates of Qdots offer a wide spectrum of applications such as multi-labeling of proteins and fluorescent in situ hybridization of DNA. The PIs will explore a new approach to an established research topic and venture into the emerging research area of nano-materials.

The novel approach may improve established methods of bioimaging in marine science and serve as a proxy test for the use of Qdots with other cellular probes. The project will demonstrate if Qdots can be detected by flow cytometry of intact cells and if successful, could provide a new and valuable suite of methods for biological oceanographic studies. This project will explore a 'no kill' approach to detect cells in real time. Qdot bioconjugate technology has the potential to develop novel molecular markers for identification and characterization of phytoplankton using microscopy and immuno flow cytometry. The project will foster a partnership between The University of Maine's Darling Marine Center and Bigelow Laboratory for Ocean Sciences. The project will promote the involvement of women in science and engineering.